Engineering for Kids

The Oregon Museum of Science and Industry (OMSI) is a progressive science and technology center. Its philosophy toward science education is to make it enticing, enjoyable and motivating. It accomplishes this by means of "hands-on", interactive exhibits and programs designed to provide a non- threatening learning environment, for which we are recognized nationally. OMSI recognizes the important national need to assist the public in understanding and being comfortable with advances in, and methodology of applied science. It proposes to design and build a large exhibit that promotes problem solving using engineering principles. The exhibit will pose problems, offer basic information for the solution and provide a variety of tools and building materials from which the visitor can choose. The visitor then devises one or several possible solutions, and constructs a prototype to be tested in one of three large scale testing laboratories. The engineering fields addressed are aeronautical, mechanical and civil. Our visitors will come away from the exhibit with an increased appreciation for the way engineering is done and how solutions affect their lives. OMSI is requesting $577,324 from the National Science Foundation as well as $427,539 from the Port of Portland to design and build this exhibit. The Port of Portland is interested in demonstrating how its commercial activities relate to engineering. OMSI plans to disseminate information about the exhibit to educators and other museums on a national level.